Building Information Technology Capacity in Eastern Ohio: A Plan for Renewal

This project involves a year of planning for the development of an ATE regional center for information technology. It includes forming regional partnerships including the key stakeholders having a vested interest in the economic and workforce development for information technology capacity. It also includes three symposia to raise awareness of the need for academic program reform and professional development for college faculty and K-12 teachers as well as to stimulate regionwide capacity building activities. Research activities identify IT gaps and establish benchmarks for IT development in the region. Finally, a facilities plan for the regional center is developed. All of these activities lay the foundation for the development of a project for a regional center for information technology in the next year.